Comparative Studies of Floral Genes in Paleoherbs and Gnetales (Biological Science)

Dr. Zimmer's research will highlight benefits of combining comparative molecular and classical approaches to the investigation of major biological questions. In Meyerowitz' laboratory at the California Institute of Technology she will isolate and characterize "floral genes" from planet species identified by phylogentic analyses of morphological and DNA characters as important to understanding angiosperm origins. These include the gymnosperm Gnetales and paleoherbaceous angiosperms (water lies, monocots and Piperales). Heterologous gene isolation strategies, successful for isolating homologues from divergent dicots and monocots, will be used to obtain "similogues" from Gnetales and paleoherbs. Expression studies on developing reproductive materials, combined with phylogentic analyses of coding sequences, will then be performed to determine molecular homologies for each key gene or class of genes. Among hypotheses to be tested are homology of Gnetalean reproductive structures will specific angiosperm whorls and the history underlying perianth absence in Piperales. Interactive activities at the host institution include: teaching undergraduate and graduate seminar courses and sponsorship of visiting speakers. Speakers will interact formally and informally with students and faculty. Invitees include researchers using interdisciplinary approaches to various biological questions and professionals in the fields of science education and science writing. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.